EMSW21-RTG: New Techniques in Low-Dimensional Topology and Geometry

Abstract

Award: DMS 0739392
Principal Investigator: John W. Morgan, Mikhail G. Khovanov,
Walter D. Neumann, Peter S. Ozsvath

Low-dimensional topology is undergoing a revolution thanks to an
infusion of new techniques from other areas, including
mathematical physics, representation theory, holomorphic curve
theory, analysis, and algebraic geometry. This fusion of
techniques has led to an explosion of results and also new
avenues of research. Examples of this include Perelman's recent
proof of the Poincare conjecture using methods from geometric
analysis; Donaldson's gauge theory approach to construct
invariants for smooth four-manifolds, and the subsequent
discovery of the Seiberg-Witten equations; invariants of three
and four-manifolds defined via holomorphic curves; the quantum
polynomial invariants for knots and, more recently, their
categorifications. This project aims to train the next
generation of researchers in these exciting and vibrant subjects,
including graduate students and postdocs; and also to widely
disseminate the latest discoveries in these fields.

The aim of this proposal is to stimulate the research training
environment at Columbia University in the new developments in
low-dimensional topology and geometry. Many of these developments
have been pioneered by faculty at Columbia. The objectives of
this program are: (i) to increase the number of undergraduates
who will pursue graduate studies in this exciting and active area
of mathematics, and to ensure that their training equips them
well for graduate studies; (ii) to broaden and strengthen the
research background of the graduate students at Columbia, so that
they are better equipped to fulfill their research potential, and
contribute meaningfully to this rapidly-changing subject; (iii)
to prepare the postdoctoral associates for more independent
research in this area; (iv) to foster communication among all
strata in the research group at Columbia, and in fact to train
the associated students and postdocs in expository skills,
teaching, and research; and (v) to foster the dissemination of
knowledge in this field from Columbia University to the wider
mathematical community.